Development of Microdomain RF Coils for NMR Microscopy

The goal of this project is the development of new miniature radio frequency coils that will extend the application of NMR microscopy to smaller fields of view than have previously been studied. We propose to develop new coils with diameters as small as 10 um, which would be two orders of magnitude smaller than those presently used. At these dimensions, traditional circuit models used to characterize the interaction between the coil and the sample are inadequate. Therefore, we propose to conduct a more complete theoretical analysis and experimental validation of coil performance. This evaluation will include 1) design and fabrication of new coil configurations, 2) electrical characterization of coil parameters (resistance, inductance, quality factor), and 3) verification of coil performance (signal- to-noise, image resolution) at 300 MHz. The results of this study will be new microdomain coils with enhanced sensitivity for small imaging volumes and improved signal-to-noise.